Conference: 2003 Gorgon Research Conference on Nonlinear Optics and Lasers

0330692
Winful

Intellectual Merit: This proposal requests $3500 to support the 2003 Gordon Research
Conference on Nonlinear Optics and Lasers. The funds will be used to enable more
graduate students to attend this conference. Highlights of this year,s conference include
nonlinear optics in periodic mcro/nano-structured materials, relativistic nonlinear optics,
the generation of ultrahigh harmonics, nonlinear microscopy, quantum optics and
quantum information science, the counting and control of optical cycles, and the physics
and applications of microstructured fibers. All of these areas have seen significant
advances since the last Gordon Conference in 2001, and many of these areas have
significant controversies associated with them making the subject matter ideal for a
Gordon Conference. This will be a fantastic conference for students and young faculty.
Broader Impact: This interdisciplinary conference will bring together leaders in the
field as well as graduate students and young postdocs in an intensely stimulating and
interactive environment. Substantial time is allocated for discussions within the technical
sessions. We will actively seek out and encourage participation by minority and female graduate
students.